The Nordic National Computing Project: State Level Activities and the Cultural Construction of New Information Technology

WPCo 2 ; B P V ` Courier 10cpi | x ? x x x , k x 6 X @ 8 ; X @ 8 2 m 3 ' 3 ' 3 ' 3 ' 4 < D L ! 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' ! # x \ P C X P# The Nordic countries have an international reputation for developing advanced technologies which are both efficient and humane. What are the mechanisms through they accomplish this? In reality, how successful are policies which use government to influence technology? This project aims to answer these questions through a comparative study of the national networks which foster new information technology in Norway and Sweden. The comparison i s particularly timely because of recent government changes in Sweden. The basic method will be anthropological fieldwork in Oslo, at the National Computing Centre, and in various sites in Stockholm. Specific areas to be studied include policies to promote 1) broad participation in computing system design; 2) new technology for people with disabilities; and 3) computing which equalizes the social roles of women and men. In addition to documenting one way in which systems get created, the project will help us understand both the limits and the advantages of including the public in decisions about new information technology. *** # x \ P C X P#